REU: Research Experience in Marine Sciences for Undergraduates

This award supports a Research Experience for Undergraduates site proposal to provide research experiences for selected undergraduates in the marine sciences, in order to acquaint them with the excitement and opportunities of academic research and to encourage them to contemplate going on to graduate studies and eventually careers in research.